Identification and Decentrialized Control of Critical Modes in Electrical Power Systems

Electric power systems are examples of integrated complex nonlinear large-scale systems. These systems contain a variety of components from a simple linear time-invariant continuous or discrete-time system to a complex nonlinear time varying stochastic system, each of which can be modeled. Because of these characteristics conventional analysis and control design methods cannot be applied to present and future electric power systems. The research supported in this project is to develop analytical tools suitable for analysis and control of complex electric power systems. Specifically, the project focuses on: (1) methodology to identify the critical modes in a given power system and expand this algorithm to derive coherency measures, (2) an algorithm to determine the minimum number of decentralized actuators and sensors and their most effective locations, (3) a method to design robust decentralized controllers, and (4) applications of these techniques to power system stability and control problems. These algorithms are effective for a wide range of operating conditions. The methods are developed by investigating eigenstructure dynamics, sensitivity analysis, transfer function residues, and robust control design theory. The problem is formulated in deterministic as well as stochastic frameworks using time and frequency domain techniques. Issues such as model uncertainties, nonlinearities, wide range of loading conditions, structural changes, controller structures, and computational efficiency will be the foci of the research.